Concurrent Optimization of Cell Libraries and Fabrication Processes

This research proposes to develop techniques for concurrent optimization of both the circuit cell libraries and the fabrication process. A key advantage of the proposed approach is that it allows both the circuit designer and fabrication process engineer to work towards the common goal of maximizing yield, which will in turn reduce product cost. A second advantage is that through concurrent engineering, this approach can significantly reduce product development time. Provisions have been made for validating proposed techniques in an industrial setting. The research component of this proposal is also complemented by an extensive education plan for integrating studies in concurrent design into the undergraduate curriculum.